Mathematical Sciences: The Fourth Autumn Course on Mathematical Ecology, 1994

9414353 Hallam The investigator and his colleagues conduct a training course and research conference on mathematical ecology. The multidisciplinary course addresses ecological problems using mathematical, statistical, and computational methods. Specific topics include - population demography, - population, community, and ecosystem dynamics, - conservation biology, - resource and agricultural management, - environmental assessment and quality, - global change, - epidemiology and infectious diseases. Ecology studies the relationships between living things and their surroundings. As with other complex phenomena, the mathematical sciences help model, analyze, and understand these relationships. This project introduces researchers at all levels to mathematical and computational tools, mathematical formulations of ecological questions, and the ecological implications of the mathematical results. It also fosters research collaborations between mathematical and ecological scientists on problems important for the sciences and for the environment. A significant feature of the course is the involvement of students, postdoctoral researchers, and scientists from developing countries as well as from developed countries. This grant supports U.S. participants.